The Mathematical Knowledge for Teaching Measures: Refreshing the Item Pool

This project proposes an assessment study that focuses on improving existing measures of teachers' Mathematical Knowledge for Teaching (MKT). The research team will update existing measures, adding new items and aligning the instrument to new standards in school mathematics. In addition, the team will update the delivery system for the assessment to Qualtrics, a more flexible online system.

The research team will build an updated measure of teachers' Mathematical Knowledge for Teaching (MKT). Project researchers will conduct item writing camps, develop new items, cognitively pilot and revise items, and factor analyze items. The researchers will also determine item constructs and calibrate items (and constructs) through an innovative application of Item Response Theory (IRT) employing a variant of the standard 2-parameter IRT model. Finally, the team will oversee the transition of the Teacher Knowledge Assessment System to the Qualtrics data collection environment to allow for more flexible item specification.

The Discovery Research PreK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.